The Paleoceanographic Utility of N. pachyderma in a Seasonally Ice-Covered Environment

Summary: This ESH award will examine the seasonal flux of the planktic foraminifer N. pachyderma in sediment traps from the Pacific sector of the Southern Ocean to determine whether this species accurately represents surface water conditions or, as the PI hypothesizes, subsurface conditions caused by the presence of a shallow, very cold subsurface layer and intense density stratification.